A System for Creating Programs Via a Spoken English Interface

Computer Science (31)

We are developing NaturalJava, a natural spoken language interface for writing and editing Java programs. This system makes programming far more accessible to vision and motor impaired students. A unique feature of the system is the method of structured editing for fixing errors and/or making additions. Spoken language is converted to an abstract syntax tree which is displayed. Vision impaired students then access the displayed tree via commercial products. The system is being tested with student programs, including novices and vision and motor impaired.